Applications of Set Theory to Analysis

The Fields Institute in Toronto, Ontario is running an intensive
program in Applications of Set Theory to Analysis from September
to December 2002. This is an award for the support of junior
U.S. participants in that international program. Long-term
activities in the semester include graduate courses and seminars,
and shorter activities include a workshop on Descriptive Set
Theory and a workshop on Banach Spaces, Algebras, and Subspaces
of Baire Class 1 Functions.

Even people whose only contact with higher mathematics comes from
watching reruns of "Star Trek" or "The Simpsons" will have encountered
the phenomenon that the decimal expansion of Pi requires infinitely
many digits. The ratio of the circumference of a circle to its
diameter, therefore, is a manifestation of the actual, as opposed to
just the potential, infinite. While the existence of the actual
infinite has had a profound influence on mathematics, its acceptance
was not immediate and the history of the subject is fraught with
controversy. Two major branches of mathematics which devote much of
their resources to the study of the infinite are analysis and set
theory. Much of analysis is concerned with understanding limiting
behaviour in various contexts. A simple prototype of this is found in
considering the number Pi as the limit of increasingly longer finite
decimal approximations to Pi. Many of the spaces which analysts study
consist of limits of simpler objects. Set theory, on the other hand,
studies the infinite in a more abstract setting, concentrating on the
combinatorial and structural implications of the infinite. While the
connections between set theory and analysis have always been
acknowledged, too much of the work in these two areas has gone on
largely unheeded by researchers in the other area. The chief purpose
of the current proposal is to create an environment where leading set
theorists and analysts can collaborate on problems which straddle the
boundaries of their subjects.